RUI: Isolation of Sperm Cells from Pollen and Pollen Tubes

Sperms of flowering plants will be isolated from pollen in their native state and will be used to perform in vitro fertilization. The two dimorphic sperms will be characterized to understand better the double-fertilization process in flowering plants. Results from this investigation have potential use in agriculture and biotechnology.